Upgrade and Development of Advanced (Electron Paramagnetic Resonance/Electron-Nuclear Double Resonance/Optically Detected Magnetic Resonance) EPR/ENDOR/ODMR Instrumentation

9601864 Angerhofer A state-of-the-art electron paramagnetic resonance facility will be established at the University of Florida. The facility will support the research of seventeen faculty members from several departments and colleges at the University. A unifying theme of the research is the common goal to understand the structure and dynamics of paramagnetic states in the various materials of interest. Major instrumentation proposed includes the upgrade of an existing EPR (electron paramagnetic resonance) spectrometer, acquisition of pulsed ENDOR (electron-nuclear double resonance) capabilities, and development of a commercially-not-available ODMR/ODENDOR (optically-detected magnetic resonance / optically- detected electron-nuclear double resonance) spectrometer and of a portable helium-three refrigerator for very-low-temperature EPR applications. The instrumentation will be used to study a variety of material systems, including photochemical reactants and matrix- isolated molecules (Chemistry), rare-earth-doped semiconductors (Materials Science and Engineering), low-dimensional ferromagnets (Physics), and biological macromolecules (Pharmacology and Therapeutics). A total of twenty-four students and post-doctoral associates (38% female participants) will be involved in training and use of the instruments. The educational activity will be formalized through a special topics course involving laboratory work along with theoretical background for students from the various colleges involved. %%% The facility will have a large impact on the research infrastructure of the Southeastern region by creating a center of excellence in the area of electron paramagnetic resonance. It will complement the instrumentation available at the National High Magnetic Field Laboratory (NHMFL) in Tallahassee, and serve as a staging post for the high field and high frequency experiments being done at the NHMFL. ***